Lie group actions on symplectic manifolds

Reyer Sjamaar proposes to investigate topological and geometric
aspects of symplectic manifolds, in particular quasi-Hamiltonian Lie
group actions, symplectic Hodge theory, real forms of symplectic
manifolds, and their applications to certain eigenvalue problems.
This project is expected to advance knowledge in the fields of
symplectic geometry and matrix analysis. The proposed methods are
borrowed from differential and algebraic topology, index theory and
geometric invariant theory, and they build on results concerning
cohomological and convexity properties of momentum mappings obtained
in previous NSF-funded projects.

According to an important principle of mathematical physics, known as
Noether's principle, symmetries of mechanical systems give rise to
conservation laws, such as the well-known laws of conservation of
energy and momentum. The modern differential-geometric formulation of
Noether's principle is based on the notion of a momentum map. The
funds for this project will be used to investigate several problems
concerning momentum maps, with applications to matrix analysis, which
is the study of large systems of linear equations, and the topology of
moduli spaces, which are parameter spaces for solutions of nonlinear
equations such as the Yang-Mills equation.